A Parametric Analysis of Persian: Headedness and Related Issues

ABSTRACT This grant will support planning and preparation for a two- year study on Persian and English second language acquisition. The empirically based study will examine headedness effects in two complementary situations: the learning of English by native speakers of Persian, and the learning of Persian by native English speakers. The approach will be based on Government-and- Binding Theory, because it seems the most promising and active direction in recent work. The focus is on the headedness parameter, because its value differs in Persian and English, because the parameter is itself complex, bearing relation to other issues, and because it has received significant attention in recent research. The research problem is an interesting and timely one, exploring the implications of a highly topical issue in linguis- tic theory in the realm of second language acquisition. The theoretical issue is the consistency of "headedness" of phrases: in most languages, if verbs precede their objects, then preposi- tions will precede their objects, or conversely both will follow. Some languages are exceptions to this pattern, however, and Persian is an especially notable example. The exceptions raise the problem of devising a coherent theoretical account which fits all cases. A theory of parametric variation of languages seems promising. The theory has certain theoretical implications for second language acquisition by adults across the theoretical barrier between the regular and the exceptional languages. The project being planned will test these implications. The planning grant will enable fuller development of the theoretical framework and the hypotheses to be tested, and establishing the logistical arrangements for the rather complex testing (based in university classrooms) which will be required.